Bayesian Diagnostics

One of the major changes taking place in practical econometric analysis is the increasing use of diagnostic statistics which are used to critique econometric models and to stimulate model revisions. The use of diagnostic statistics presents a challenge to statistical theory, classical or Bayesian. Traditional statistical theory deals with the evaluation of planned responses to hypothetical data sets. Indeed, it is impossible to compute sampling properties without a set of plans indicating the response to the data for every conceivable data set. The use of a diagnostic statistic to criticize a model is an advance announcement that the planned response is not fully committed and may be revised when the actual data are observed. The purpose of this project is to formulate diagnostic statistics. Most of the effort will be devoted to elicitation diagnostics, but some work well also be done on criticisms. The approach will be Bayesian. Progress has already been made on the formulation of elicitation diagnostics for the problem of choice of variables. Extensions of this work will be undertaken to deal with other serious statistical problems such as heteroscedasticity, nonnormality and serial correlation. This work is important because it will better methods for estimating economic relationships.